IRNC-BackBone- TransPAC4 - Pragmatic Application-Driven International Networking

TransPAC4 is a cross-organizational approach to provide services and bandwidth connecting scientific researchers in the US with their counterparts in Asia. This connectivity has an immediate impact on the research environment, and also anticipates future application and technology advances.

Indiana University (IU) leads the TransPAC4 Collaboration in a cooperative partnership with Asian regional partnerships including: Asia Pacific Advanced Network (APAN), the Trans-Eurasia Information Network (TEIN), and the Delivery of Advanced Network Technology to Europe (DANTE) project. Research and Education networking partners include the Japanese National Institute of Information and Communications Technology (NICT), the Japanese National Institute of Informatics (NII), the Singapore Advanced Research and Education Network (SingAREN), and the Taiwan National Network. Domestic partners include Internet2, the Energy Sciences network (ESnet), and Pacific Wave's international peering facility.

In addition to providing high performance network capacity in the form of 10G-100G circuits and associated services, the project focuses on increasing the partnerships needed to take advantage of these links, including but not limited to growing communities in geosciences, bioinformatics, and particle physics. The TransPAC4 Collaboration expands and enhances end user engagement and operational integration in Asia-Pacific. Close cooperation among participants serves to maximize US-Asia connectivity, increase collaborations, deploy dynamic circuit services to meet the needs of high-bandwidth applications, and increase reliability through alternative circuits. The project also extends the use of Software Defined Networking (SDN)and network acceleration services.